Virtual Topologies for Multiparty Communication

This proposal seeks to improve multiparty communication on the Internet by applying models
and methodology from the fields of graph theory and parallel and distributed computing. Multiparty
communication refers to any type of information exchange among a group of participants, including
conferences, advertising, electronic voting, remote monitoring, and meta-computing.
Multicast, or one-to-many communication, has received the most attention from network proto-
col designers and has been implemented on a subset of the Internet known as the MBone. Several
obstacles to the universal deployment of multicast remain, such as high cost and lack of robustness.
Moreover, some multiparty applications are not able to operate, or operate less efficiently, because
multicast is a poor match for their style of communication. Large-scale electronic voting, for exam-
ple, could use a many-to-one network service, with balloting results partially tabulated on the way
to a central reporting service.
Research from the fields of graph theory and parallel and distributed computing has solved many
of these problems, albeit for environments that differ greatly from that of the Internet. The key to
applying these results to Internet protocols is the use of a virtual topology that maps a theoretical
substructure onto the physical network. As with the MBone, the links in the virtual topology could
consist of some physical links and some virtual links implemented by encapsulation tunnels.
The proposed research first addresses limitations in current multicast routing protocols. The researchers
propose to investigate the use of spanners as a virtual topology for densely-populated multicast
groups, thus improving the efficiency of the periodic ooding used in this domain. For sparsely-
populated groups, we propose to apply hypercube message passing algorithms used in parallel
computation to the design of a more efficient and fault-tolerant multicast protocol. The researchers then plan
to apply the techniques used for multicast virtual topologies to other multiparty communication
paradigms. The researchers have identified promising research directions for reduction (many-to-one), subcast (one-to-some), and multi-source multicast (few-to-many).
The project will progress in three main stages: analysis, protocol design and evaluation. The
analysis stage is intended to identify virtual topologies that are good candidates for multiparty com-
munication protocols. The analysis will include definition of formal models of the virtual topologies
used, definition of appropriate metrics and statistical evaluation of random samples of the topologies,
and discussion of complexity status of the relevant exact and approximate optimization problems.
The protocol design stage will build on our analysis by using virtual topologies as the basis for
communication protocols. Our emphasis will be on protocols that are feasible and practical to
implement and will be based on simulation studies of the static properties of proposed graph struc-
tures. Evaluation of the new protocols will utilize dynamic simulation to look at traffic capacities,
delay, and fault tolerance recovery. Eventually, the developed protocols will be implemented and
evaluated on a network testbed built with prior NSF support.
The major contributions of this work will be a methodology for applying virtual topologies to
Internet protocol design, formal models for these topologies, and new protocols for multicast rout-
ing, reduction, and other communication paradigms. Further outcomes of our work will include
a database of topologies used in our simulations, methods for modeling dynamic group member-
ship and group distribution, and techniques for evaluation of fault tolerance properties of virtual
topologies and protocols. The contributions to education will consist of training of graduate and
undergraduate students in network theory and engineering, and development and dissemination of
curriculum materials for the design and evaluation of multiparty communication protocols.